IUCRC for Design and Text of Mixed-Signal Systems

This Industry/University Cooperative Research Fellowship project funds the University of Washington's Industry/University Cooperative Research Center for Design of Analog-Digital Integrated Circuits to study the design and test of mixed-signal systems at Boeing Company. The project which is to take from six to nine months is being cost-shared by Boeing with approximately 25% of the cost being provided by the University of Washington. The project is focussing on design-for-test methodologies for analog microcircuits, as the first step towards general analog test and diagnosis problems. Theoretical and experimental approaches will be applied to analog filters to prove the feasibility of the methodologies. The project has been endorsed by the Industry/University Cooperative Research Center for Design Analog-Digital Integrated Circuits. The Program Manager recommends the University of Washington be awarded $25,266 six months for this project.